Development of Waste Management Technologies Laboratory for Undergraduate Chemical Engineering Majors at San Jose State University

The Chemical Engineering Department is expanding its curriculum so that it exposes students to practical and theoretical applications in the area of Waste Management by developing a Waste Management Technologies Laboratory. Students apply principles discussed in current technical electives in the area of waste technologies through the hands on operation of a bioremediation system, a particulate characterization and removal system and an incineration system. A workstation is used for sophisticated modeling, simulation and graphics ability. Experiments and examples illustrating principles of these emerging technologies are also incorporated into existing core courses.